2009 Gordon Research Conference (GRC) on Atmospheric Chemistry; Waterville Valley, New Hampshire; August 23-27, 2009

This award is to support the 2009 Atmospheric Chemistry Gordon Research Conference. The conference will be held in Waterville Valley, NH on August 23-27, 2009, and will be convened under the auspices of the Gordon Research Conferences. The conference will bring together a large and diverse group of scientists from the atmospheric chemistry community and related fields to discuss new developments in chemical observations, mechanisms and models; the formation, composition and impacts of aerosols; biomass burning; and the role of atmospheric chemistry in climate change. Researchers at the frontiers of atmospheric chemistry will meet in an informal setting and exchange ideas and new information at the forefront of this field. Broader impacts stem from the societal importance of atmospheric chemistry to air quality, public health, and climate change, and also because at least 25 of the participants will be young scientists at the beginning of their careers.